Support for U.S. Delegation to the VI Latin American Botanical Congress, Mar del Plata, Argentina

9415334 Forero The award will provide funds for U.S. scientists and Latin American graduated students to attend the VI Latin American Botanical Congress in Argentina and the Latin American Botanical Society. The scientists will present papers and keynote speeches. The program will focus on biodiversity.